Conference: Support for HICSS-28 Biotechnology Track in Maui, Hawaii, January 3-6, 1995.

9419071 Klein This award provides support for participation by graduate students and postdoctoral fellows in the Hawaii International Conference on System Science (HICSS) that takes place January 3-6, 1995. This conference has several themes, and the one of particular interest to this award is the one on Biotechnology Computing. This track brings together computer scientists and biological scientist and provides an international forum to discuss current developments. Finally, this conference does produce a referred proceeding, to allow other researchers to gain from the topics that are discussed at the conference.